SGER: Polarization Near-Field Scanning Optical Microscopy of Ordered Polymers

9315676 Spontak The resolution of a conventional optical microscope, limited by diffraction in the "far-field," is dictated by the wavelength of the electromagnetic radiation employed. Recent studies have successfully demonstrated that a microscope based on a drawn optical fiber and operated within very close proximity to a specimen (in the "near-field") is limited by the size of the probe (to ca. 20 nm) and not by considerations. In this work, we will carry out an exploratory program in which polarization near-field scanning optical microscopy (PNSOM) is developed and applied as a novel characterization technique to determine the spatial distribution of local molecular organization (through birefringence) in a variety of ordered polymeric materials. Several systems will be targeted for initial studies in this program. Local birefringence in a liquid crystal/polymer emulsion (for electro-optical applications) would provide information regarding molecular organization at the crystal/polymer interface. In-situ studies of thermotropic and lyotropic polymers will permit determination of local supramolecular organization preceding mesophase formation and reorganization accompanying thermal treatment. While these systems will be the focus of our initial studies, we foresee PNSOM as a high-resolution imaging technique promising to prove beneficial in studies involving crystallization, surface orientation, localized stress, and phase compatibilization. This technique is non-destructive and does not require the capital, maintenance, and high-vacuum needed by several high-resolution imaging techniques. ***